Collaborative Research: Influences of environmental manipulation on parental programming and stress physiology in a cooperatively breeding bird

A wealth of research in the biological and social sciences has demonstrated that rearing environment is an important contributor to offspring development. Are these developmental effects adaptive in terms of molding an individual to match current environmental conditions? The co-PIs will first test whether variation in provisioning behavior by breeding Florida Scrub-Jays gives rise to differences, both physiological and behavioral, in the resulting offspring. The research will then follow the survival and reproduction of these offspring to assess whether the developmental pathways determined by their parent's provisioning behaviors do indeed match the offspring phenotype to the current environment. Florida Scrub-Jays breed as family units, with older siblings helping to rear the most recent brood of nestlings. Hence, findings with respect to the rearing environment and its potential to affect physical and mental aspects of the emerging adults will have implications for other species with complex social systems (like humans). Furthermore, through a multifaceted approach to monitoring physical, physiological, and behavioral aspects of focal birds, the co-PIs will be able to provide insight into the mechanisms that drive environmental influences on offspring development (preliminary data suggest an important role for secretion of the 'stress hormone' corticosterone, early in life). A key component of the research will be the development of a new automated feeding technology to manipulated food availability and provisioning rates in particular family groups. This approach, which will use radio frequency identification to selectively administer food to targeted individuals, will introduce an inexpensive yet powerful tool for studies that require manipulation of the feeding environment. Previous work by the co-PIs has demonstrated that food supplementation can increase the number of young produced in this Threatened species, and the improved delivery system the co-PIs will use in this research will be a powerful conservation tool that can be used by managers of other threatened and endangered species.

The field work will take place at Archbold Biological Station in Central Florida, and will contribute to this institution's infrastructure and legacy of high-quality research. Finally, the research will provide training opportunities for a number of undergraduates (or recent graduates), two Ph.D. students, and two post-doctoral researchers; and it will help enrich Archbold's K-12 education programs.